Dissertation Research: Demographic and Genetic Studies of Longleaf Pine

The proposed research will examine basic processes in forest tree ecology: dispersal (seeds), and survival of seedlings (as affected by fire). By investigating these life history traits in longleaf pine populations, this research will provide a number of new insights. First, this research will provide important information about dispersal abilities of forest tree species. There is a gap in knowledge of the amount of seeds that trees produce and how far seeds are dispersed. Second, how patterns of dispersal; reflect establishment and growth of seedlings will be elucidated. It is important to determine what factors play a role in the success of forest species from seeds to juveniles to adults. Finally, because some forest species, such as longleaf pine, can grow better in the presence of fire, it is important to see if fire plays a role in survival of seedlings. This research has many silvicultural applications. From this study, the optimum distance of seed dispersal can be predicted. This information will be helpful in management of pine populations. Second, the factors influencing survival can be determined. This information will be beneficial in increasing yields. Third, the study will shed light on how juvenile patterns reflect optimum forest structure, important in the thinning and spacing of trees. Finally, this research will provide information about fire effects and growth of forest species.